Student Travel Support for the 10th USENIX Symposium on Operating Systems Design and Implementation (OSDI 2012)

This grant provides travel support for students wishing to attend the 2012 Operating Systems Design and Implementation (OSDI) conference, which is to be held in Hollywood, California, from October 8-10, 2012. The organizing committee expects that more than 500 people attend the OSDI 2012 conference, with at least 100 student attendees.